Structural Studies of Spectrin

9801870 Fung This project studies interactions between helices in the tetramerization site of human erythrocyte spectrin dimer using recombinant peptides consisting of specific spectrin fragments. Spin label electron paramagnetic resonance (EPR) methods will be used to study the N- terminal region of an alpha peptide (a fragment consisting of the first 368 amino-acid residues of human alpha- spectrin, Sp alpha 1-368) and the C-terminal region of a Beta-peptide (the exact nature of this peptide to be determined in this project). These regions of spectrin have been suggested to be the tetramerization site of spectrin. Site directed mutagenesis will be performed on the Sp alpha1-368 peptide to remove native cysteine residues, followed by replacement of a native residue at one or two specific positions (between residues 1 to 52) by cysteine residue for spin labeling. Singly labeled and doubly labeled Sp alpha 1-368 peptides will be used for EPR studies. Similar approaches will be used on the Beta-peptide. This project will determine whether the N-terminal region of the alpha-spectrin and the C-terminal region of the Beta-spectrin consist of either all alpha-helical structure or a combination of alpha-helical and other types of structure. Further insight will be obtained on how the (30 residues (residues 20 - 52) in the alpha-spectrin N-terminal region associate with the (70 residues (residues (2010 - 2080) in the Beta-spectrin C terminal region. Thus, the work will provide substantial advances in understanding the structure-function relationship for human erythrocyte spectrin.